Virtual Three-Dimensional Tactile Display for Science and Technology Education of the Blind

0603198
Enikov

The main goal of this proposal is to develop a novel 3D tactile display that allows students of science and math to "touch" virtual 3D objects using a finger-worn micro-tactile display. The development of a novel 3 D tactile display will aid visually impaired in recognizing and studying complex three dimednioanl objects. The approach is unique building upon new fabrication techniques as well as using PC based 3D virtual presentation that allow a user of the proposed device to identify 3D objects via the tactile illusion phenomenon. The project would have a great impact on visually impaired people. The proposed project will allow the visually impaired to access computers and specifically, allow greater access to the internet. The educational activities are very prepared for the training and supervision of students at all educational levels and for developing design courses. The outreach activities will include summer activities for STEM teachers who will be invited to bring visually impaired students for a demonstration of the developed technology.